CAREER: Analysis Techniques for Evolution of Modular Software

-------------------------------------------
CCR-9984681
(title unchanged)
PI: John T Boyland

Software evolves through the addition of features, removal of defects,
or improvement in the basic algorithms. The desired changes may be
easiest to incorporate if the program is first restructured. This
research has impact through its incorporation into the ACT/Fluid
prototype software engineering tool, which supports programmer-guided
program manipulation and restructuring. Since the tool does not have
access to the whole program (portions may be hidden in libraries or
undergoing concurrent development), this research proposes decorating
interfaces between components with annotations called ``promises.''
Promises serve as surrogates of missing code during inter-procedural
analysis, serve as proof obligations when that code is itself
analyzed, and serve as contracts between separately-developed program
components. The investigator is integrating the research directly
into two computer science courses: one, a graduate course on program
analysis; the other uses the ACT/Fluid prototype as a refactoring tool
for Java programs. Additionally, the investigator is addressing the
needs of non-traditional students through increased emphasis
on `how' and `why' issues, more supportive instructor-student
interaction, and improved assessment procedures. Successful
completion of this project will encourage the use of verified program
manipulations in software evolution, leading to better structured
programs with fewer defects